SYSTEMIC INITIATIVES KNOWLEDGE-BASE DISSEMINATION VIA AN INVITATIONAL SI WORKSHOP AND THE SI STUDY FORUM WEBSITE

The proposal seeks to disseminate the Systemic Initiatives (SI) study results via hosting two distinctive activities: an Invitational SI Workshop and an SI Study Forum. The SI Invitational Workshop of urban school data managers, internal evaluators, and project directors as well as selected urban study members will be held March 14 - 16, 2002 in Orlando, Florida. The proposed SI Study Forum website will further disseminate results of more than 30 studies supported by the National Science Foundation. The website will be ongoing past the end of the grant period.

The proposed work is to be funded by The Division of Educational System Reform (ESR) in collaboration with the Division of Research, Evaluation and Communication REC).